Mathematical Sciences: Investigations of Three-dimensional Manifolds and Their Mappings

McCullough will continue to work on structure and mappings of three-dimensional manifolds. In individual projects, or joint projects with off-campus mathematicians, he will work on the mapping class groups and diffeomorphism groups of 3-manifolds. Techniques will be drawn from several areas, including combinatorical topology, hyperbolic geometry, and combinatorial group theory. 3-manifolds are particularly important objects to understand, since we live in a 3-dimensional universe.